Support for Herbarium at the San Diego Natural History Museum

The Herbarium of the San Diego Museum of Natural History contains more than 125,000 specimens, including more than 200 type specimens. This collection is an important repository of plants representing the flora of the southwest U.S. and Baja California. Dr. Geoffrey Levin, Curator in charge of the Herbarium, has planned important improvements in the physical curation of these plant specimens. New storage cabinets will be installed on compact storage rails, thereby providing more efficient and safe storage without sacrificing access to the specimens. The proposed compact storage will provide room for decades of collection growth. The proposed collection improvement represents a long-term plan for managing an important research resource. The community of research biologists depends on herbarium collections such as this for reference materials. Countless studies in ecology, evolution, biogeography, and global change will draw crucial information from this collection. Future generations of research depend on the care and growth of collections such as this.